A Mathematica Lab for Calculus and Beyond

Frank H. Beatrous DUE 9550813 U of Pittsburgh FY1995 $ 30,000 Pittsburgh, PA 15260-0001 ILI - Instrumentation Project: Mathematics Title: A Mathematica Lab for Calculus and Beyond A Mathematica laboratory is being developed to support expanded curricular reform in calculus and to initiate reform of subsequent service courses at the University of Pittsburgh. The laboratory is supporting expanded implementation of a two track calculus course, based on the Calculus & Mathematica materials of Davis, Porta and Uhl, and the Harvard Calculus Consortium materials of Hughes-Hallett, Gleason, et al., which is affecting all students in the science and engineering calculus sequence. In addition, this project is facilitating revitalization of the mathematics curriculum at the next level through reform of the mathematics courses serving engineering, physical, and social sciences.